CAREER: Elucidating and Harnessing Early Main Group Clusters for Bond Activation

Professor Samantha Yruegas of Rice University will develop a new approach to building precise multimetallic structures, known as s-block clusters, using common metals like calcium and sodium to advance chemical synthesis. By using specialized molecular templates to guide the assembly of these metals, this project seeks to understand and harness the reactivity of these earth-abundant elements that have been previously inaccessible. The development of abundant, nontoxic alternatives for chemical processes will support innovation in advanced manufacturing and lead to more affordable methods to generate pharmaceuticals, fuels, and materials while also training the next generation of the scientific workforce. Simultaneously, the program will stimulate chemistry education in local and global communities through in-person interactions and hybrid modalities. Beyond the laboratory, the project empowers the community through the Regional Inorganic Chemistry Experience for Students and Teachers (RICEST) program, which provides hands-on summer research internships for paired Houston-area high school students and teachers to translate their experiences to poignant classroom discussion and communication using social media. Additionally, the CHEMBUSTERS initiative leverages social media to modernize laboratory safety education for a global audience by emphasizing the pedagogical and technical aspects of synthetic chemistry.

This research seeks to establish a rational "bottom-up" synthetic framework for the isolation and study of well-defined s-block metal clusters, specifically those of calcium and sodium. Historically, the chemistry of these heavier alkaline earth and alkali metals has been limited by their propensity for unselective aggregation and rapid ligand exchange via the Schlenk equilibrium, resulting in insoluble, heterogeneous mixtures. This research seeks to circumvent these kinetic instabilities by utilizing flexible, multidentate ligand scaffolds to serve as structural templates for the selective installation of metal sites. The project will further investigate the structure-activity relationships of these clusters to analyze the electronic environments at both terminal and intercalated metal sites. Finally, the research will evaluate the competency of these well-defined clusters for small-molecule bond activation. In tandem, these efforts will enable the generation of rationally designed and robust methods towards s-block cluster synthesis and reactivity.